The Effect of Internal Scales in Soil Behavior

***
9908390
Santamarina
The behavior of soils and fractured rocks is determined by the discrete nature
of these media and by the inherent presence of multiple internal scales.
Indeed, it is increasingly more apparent that the mean and variance of soil
parameters are not sufficient to characterize a soil mass and to predict its
potential behavior. Furthermore, subtle yet important aspects of scales and
interactions among scales need to be understood to better comprehend soil
behavior.

The goal of this study is to discern unique phenomena in soils given the
coexistence of multiple internal scales (spatial and temporal), and their
effect on macroscale soil behavior. The proposed study centers on the following
geotechnical processes: diffusion (selected because of its apparent
insensitivity to internal scales), drained stress-strain behavior, pore
pressure (generation, dissipation and coupling). These processes will be
addressed with integral experimental and analytical tasks. A complementary
research phase will be driven towards the development of engineering design
procedures.

This research has the potential for the clarification and fundamental
explanation of frequently observed behavior in geo-mechanic and
geo-environmental situations, and for the discovery of unique phenomena related
to multiple scales and their interaction. Results from this research will guide
the development of enhanced procedures for the interpretation of
high-resolution site characterization data (e.g., piezo-CPT and geophysical
tests such as GPR and tomographic images). Furthermore, these results will also
promote the development of enhanced engineering design methodologies that
recognize multiple internal scales in global response (foundation engineering,
dynamic response, contamination and remediation, petroleum geomechanics).
***